Physics Laboratory Focus - 1993

Physics Laboratory Focus-1993, a 2-day national workshop on high school and undergraduate physics laboratories is being organized for presentation on August 6-8, prior to the 1993 Summer Meeting of the AAPT in Boise, ID. Participation is being limited to 125, including 36 invited papers chosen by a review committee. Participants will be chosen on the basis on their primary teaching levels (split between high school, introductory, and advanced labs), their record of laboratory experience, and geographical distribution.